Technician Support: Watershed Studies at Dartmouth College

0111403
Feng

This grant provides three-years partial salary support for an Phase I Ph.D. level technician to work for the Watershed Studies Program at Dartmouth College. This program, a collaborative effort between PIs Carl Renshaw and Xiahong Feng, emphasizes an interdisciplinary approach to understanding the mechanisms of contaminant transport through watersheds. The principal duties of the technician will be to work with the PIs to oversee and manage the technical requirements of the Watershed Studies analytical chemistry laboratories. Specific duties include: the assembly and testing of new instruments for high resolution monitoring of fluid and contaminant transport in heterogeneous media, including snow, soils, and streambeds; assisting the PIs with a series of pilot studies of new methods and ideas related to understanding fluid and contaminant transport through heterogeneous media; assisting the PIs in related collaborations with researchers outside of Dartmouth; and to oversee the operation, maintenance, and student training for our analytical instruments including an ICP-OES, an IC, a TOC analyzer, and isotopic extraction lines.
***